SHF:Small:Collaborative Research:Practical Synthesis of Network Updates

Configuration updates are a common source of instability in networks
today, frequently leading to outages, disruptions, and even security
vulnerabilities. A key factor that makes updates difficult to
implement is that networks are complex systems with many interacting
components. A typical datacenter network consists of
thousands of devices, a significant challenge for network administrators
is that each of these devices must be reconfigured after an update.
The goal of this research is to develop new mechanisms for implementing
network configuration updates using techniques based on software synthesis.

To meet this goal, the research is developing (i) new synthesis
algorithms based on efficient incremental model checking techniques;
(ii) extensions that model bandwidth and fault tolerance using
quantitative constraints and objective functions; and (iii)
theoretical foundations based on connections to concurrent and
distributed programming. The project will have broad impact by
discovering new techniques that automate a difficult network
administration task and by training undergraduate and graduate
students with interdisciplinary skills in formal methods and
networking.